Support in Hosting the Third U.S.-Japan Workshop on Global Change: Climate Change Modeling and Assessment: Improving Methodologies and Strategies to be held in Hawaii Oct. 24-28

This award is for support to facilitate the Third US-Japan Workshop on Global Change: Climate Modeling and Assessment, Improving Methodologies and Strategies. PICHTR will assist the USGCRP and NSF program organizers by providing technical and logistical support for the workshop activities.